SBIR Phase II: A New Bio-based Monomer for the Coatings Industry

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is to provide domestic production of renewable, biomass-based alternatives to products currently made from oil. This SBIR Phase II project will demonstrate the commercial potential of producing 1,5-pentanediol (1,5-PDO), a key chemical used to manufacture coatings, adhesives, and plastics, from agricultural wastes like corn cobs. Biomass-based chemicals can decrease the nation's dependence on oil and reduce greenhouse gas emissions, while providing cost-competitive high-performance chemical products. Creating high-value commodity chemicals using nonfood agricultural materials as feedstock promises to create new markets for bio-based waste products.

This Small Business Innovation Research (SBIR) Phase II project will generate the necessary experimental data to design commercial reactors for producing renewable bio-based 1,5-pentanediol. A chemical pathway to produce bio-based 1,5-pentanediol has been demonstrated in laboratory reactors using commercially relevant reactors and catalysts. In this work a wide range of reactor operating conditions will be explored in the laboratory for scale-up of the process. These operating conditions will be further demonstrated in larger pilot-scale equipment to inform design at commercial scale.